MRI: Acquisition of a microCT imaging system

0421038
Agrawal
The PI proposes a study in the area of bone biomechanics to explore the relationship between collagen damage and bone fracture as a function of aging. The microCT will be used to non-invasively investigate the microstructural properties of bone at high resolution as a function of remodeling.